US-FSU Workshop on Biogeochemical Processes in the Arabian Sea (Mid-September 1993; Crimea, Ukraine)

This U.S.-Former Soviet Union ıFSU! Workshop on Biogeochemical Processes in the Arabian Sea, will be held during mid-September, 1993, in the Crimea, Ukraine. Dr. Joel C. Goldman and Dr. Hugh D. Livingston, Woods Hole Oceanographic Institution, will cooperate with the Marine Hydrophysical Institute (MHI) and the Institute of Biology of the Southern Seas (IBSS), both located in Sevastopol. It has been designed to: (a) disseminate data and literature from previous research activities of Former Soviet Union (FSU) oceanographers in the Arabian Sea, (b) describe to FSU colleagues the current US and International interests in the forthcoming Arabian Sea initiatives by JGOFS, NOAA and other US agencies, (c) provide opportunities for FSU scientists to establish scientific contacts with their US counterparts, and (d) form connections which might lead to scientific cooperation between each other in both the Arabian Sea and other ocean areas of mutual interest. The proposed work would be jointly funded by the US and the two laboratories in Sevastopol. It would last five days and involve 17 US and 20-25 FSU participants, many of whom have previous research experience in the Arabian Sea and Indian Ocean. This project in oceanography fulfills the program objectives of advancing science by enabling leading experts in the U.S. and the FSU to combine complementary talents and pool research resources in areas of strong mutual interest and competence.